STEP: Gateway into First-year STEM Curricula: A Community College/University Collaboration Promoting Retention and Articulation

Wright State University (WSU) and Sinclair Community College (SCC) are collaborating to develop a common first-year STEM experience with the following intended outcomes:

1. A 10% increase in first-to-second year retention of STEM majors at both institutions

2. A 10% increase in articulation of STEM majors from SCC to WSU. The result is expected to increase the number of WSU STEM graduates by at least 50 students per year by the close of the project. This model is readily transferable to other community college/university dyads in urban settings with comparable open admission policies.

Prior NSF support of WSU's National Model for Engineering Mathematics Education has shown that the introduction of EGR 101 "Introductory Mathematics for Engineering Applications," coupled with a significant restructuring of the early engineering curriculum, has resulted in a 10% increase in first-to second year retention as well as increased student motivation and confidence in math and engineering.

Based on this early success, this research:

1. Implements EGR 101 and the associated engineering curriculum reforms at SCC.

2. Develops a companion lab-based class for science majors (Scientific Thought and Method), SM 101/ASE 101, for instruction at both WSU and SCC.

3. Provides professional development opportunities for faculty at both institutions.

4. Trains STEM seniors/graduate students to serve as lab/recitation assistants, and peer tutors for any introductory STEM classes.

5. Disseminates the curriculum and associated first-year experience through production of a textbook and through presentations at professional meetings.